A Gravity Study of the Pacific-Antarctic East Pacific Rise

This study entails processing of Antarctic-Pacific East Pacific Rise (EPR) gravity data with the objective of further developing existing procedures to generate maps of free-air gravity anomalies, Bouguer anomalies and residual gravity anomalies. A profile of gravity anomalies along the entire Pacific-Antarctic EPR will be generated to investigate their relationship to ridge segmentation processes. The availability of swath-mapping data will enhance the subsurface interpretation and lead to a better understanding of accretionary plate boundary at the EPR.